Primarily G.L.O.B.E

9801703 LaHart This project involves K-3 classrooms more directly in GLOBE activities by designing inquiry-based materials specifically for this age group. Four Storybooks are to be developed, two "big books" for grades K-1 and two picture books for grades 2 and 3. Each is with hands-on learning activities that spring from the books. These books are to link science and mathematics with language arts and geography for K-3 students. These books, designed for GLOBE, provide a meaningful introduction to technology, enhance young children's learning of science and mathematics concepts and show how inquiry can help solve interdisciplinary scientific problems.